Mathematical Sciences: Projects in Modern Analysis

The four investigators will pursue a variety of problems having to do with operators and algebras of operators on Hilbert space. One area of research is multiparameter operator theory, in which such notions as spectrum are considered in joint fashion for tuples of operators rather than for single operators. Another line of investigation concerns differentiable structure on operator algebras, including the study of unbounded derivations and of Lie group actions. Recently discovered connections between knot theory and the theory of operator algebras will be explored. The setting of Hilbert space and the linear operators that transform it is fundamental for representing many of the structures and phenomena encountered in mathematics. Basic features of this setting are infinite-dimensionality, in other words infinitely many degrees of freedom, and noncommutativity, in other words the result of a sequence of operations depends on the order in which the operations are performed. The overall aim of the research in this project is to extend still further the powerful strategy of representing things by operators.